Transfer Coefficients in the Benthic Boundary Layer

A number of investigators in chemical and biological oceanography are using benthic flux chambers to measure chemical fluxes across the sediment-water interface. Flux chamber measurements are expected to be a major component of the Global Ocean Flux Program during the next decade. Placing a flux chamber on the sea floor may in itself alter the flux of dissolved species into, or out of, the sediments. Transport through the boundary layer lying just above the sediment-water interface represents a significant impedance to chemical fluxes in certain cases. Benthic chambers can provide accurate measurements of chemical fluxes occurring on the unperturbed sea floor only if transfer coefficients through the boundary layer are known, both inside and outside the chamber. This grant provides funds to improve the reliability of a benthic lander, a device to place experimental devices on the seafloor, and also to develop a method for measuring transfer coefficients both within and outside of an experimental chambers. In two years, upon completion of this work, a simple, reliable, and relatively inexpensive system capable of measuring boundary layer transfer coefficients (previously referred to as boundary layer film thickness) at a large number of sites will be available. The system will be made available on a collaborative basis to other investigators involved in benthic studies.